Industry/University Cooperative Research Center for Advanced Communications

ABSTRACT DIGIACOMO EEC-9714572 Advanced Communications is an industry that is growing substantially in the U.S and the world. Antennas play an important role in wireless communications. The Villanova University Industry/University Cooperative Research Center for Advanced Communications is initializing its second five year continuing award. Six companies have full memberships totaling $300,000 and another six have associate memberships totaling $70,000. The Center's research agenda will focus on Phased Arrays and Digital Antenna, Phase Arrays and Digital Antenna Beamforming, Satellite Communications, Cellular Telephone Antennas, Low Profile Antennas, Cellular Base-Station Antennas, Signal Classification, and Cellular Buried Components. A woman undergraduate is being funded to augment the Center's research agenda to develop an easily-used analysis method to determine reliability and life cycle for composite functionally Grade Materials for electronic modules.